New Century Scholars

This program creates ten scholarships of four years each to increase the number of students, particularly women, completing an undergraduate degree in the computing sciences. The program increases the number of academically talented students with unmet financial need who choose a major in the computing sciences, and increases the proportion of women majors in Elon's computing sciences programs. It emphasizes academic and social support systems to help students succeed in their studies, and includes experiential learning activities to prepare students for transition to employment or graduate studies. An assessment team monitors student progress each semester.